Research Experience in Chemistry for Undergraduates at the University of California, Irvine

Dr. Robert J. Doedens and other members of the Chemistry Department of University of California at Irvine are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the recruitment of students from all parts of the country including under- represented groups.